Catalyzing Electrochemical Data Sciences: Education and Research Opportunities Workshop

A workshop, titled "Catalyzing Electrochemical Data Sciences: Education and Research Opportunities," will be held at the Spring 2021 Electrochemical Society (ECS) Meeting in Chicago, with contingencies for a potential virtual meeting. The workshop will focus on data sciences for the electrochemical community. A key objective will be to identify research priorities and strategies for promoting open electrochemical data repositories and software. Such systems will accelerate research progress in electrochemical science and engineering. To assure a diversity of participation at the workshop, participants will be nominated by the steering committee and by relevant ECS Division Executive Committees. The two-day agenda includes a series of presentations on the creation and analysis of labeled datasets in electrochemical science and engineering. The agenda also contains seminars on open source software of significance to the electrochemical community. Discussions will be guided by steering committee participants, and a report on priorities and research gaps will be drafted by steering committee members. An associated educational activity, entitled Hackweek, will be aimed at the electrochemical software developer community through online teaching and project work.

Analysis, aggregation and use of different electrochemical datasets from multiple labs are limited by a lack of standardized file structures, a lack of data quality standards, and a lack of long-lived, scalable, and searchable open data repositories. Extensive dataset archives are critical to machine learning, statistical analysis methods, and validation and parameter estimation in physics-based modeling. The lack of such data slows progress in electrochemical fields. The objective of this workshop is to identify promising research directions in data science focused on providing accessible repositories of electrochemical data for the research community. This workshop will ascertain research gaps in the processes of storing and integrating big data in electrochemical research. Members of the steering committee will lead critical activities of the workshop including selecting participants and drafting the report. The workshop leaders have significant experience in educational and management aspects of the workshop as well as in research topics pertaining to data science.